Evaluator Support for Advanced Steel Processing and ProductsResearch Center

ABSTRACT EEC-9622627 The Industry/University Cooperative Research Center for Advanced Steel Processing and Products Reqearch at Colorado School of Mines proposes to extend the utilization of the NSF evaluator for an additional period of three years. The evaluator has provided valuable services regarding the maintenance of the Center history and the polling of the staff, students, and sponsors regarding operation of the Center. The evaluator will continue to perform these needed services under the award of this grant.